Adapting ATLAST Problems into WeBWorK for Linear Algebra I and II

Mathematical Sciences (21) This project is adapting linear algebra problems developed under the NSF/DUE-funded ATLAST program, for incorporation into the WeBWorK computerized grading system. The resulting gains in grading efficiency allow faculty more time to assess the explanation parts of the ATLAST problems. In addition the project promotes the continued widespread use of these valuable exercises. All new problems and problem sets are being added to the WeBWorK problem library depository for free use by others, thus ensuring the broad impact of the project on the teaching and learning of linear algebra.